Mathematical Sciences: Mathematical Aspects of Materials Science

This project involves three components: i) a study of the mathematical aspects of discrete or continuous models of highly distorted conductors, ii) an investigation of the mechanical properties of guasiperiodic media, and iii) the computation of bounds on mechanical properties of composite materials. The project addresses some challenging mathematical questions concerning models of heterogenous materials, such as those of composites, semiconductors, superconducting composites, porous media, and modulated structures.